Minority Postdoctoral Research Fellowship

This applicant will study black-white differences in adolescent drug use. Specifically, the work aims to clarify the sources of race differences in drug use and to improve understanding of the correlates, causes and long-term consequences of drug use among black youth. The work is planned to take place with Dr. Jerald Bachman in the Institute of Social Research at the University of Michigan.